Computational Physics Laboratory

A Computational Physics Laboratory has been equipped with ten microcomputers networked to a server with a variety of software for use by all physics majors at Ohio University. The laboratory is a crucial part of our plan to integrate the computer into the undergraduate physics curriculum at all levels. The goal is to use computers (their power, flexibility, and graphics) as a tool to aid in conceptualizing physics. The conceptual insight provided by computer simulations and exercises stimulates the imagination of our physics majors, leading to improved retention and better prepared graduates. We are using existing software whenever possible, and are serving as a testing site for the (NSF funded) CUPS program of software development for upper-level physics courses. Software based on a common set of utilities provided by CUPS and MUPPET is also being developed. We believe the correlated introduction of computers into physics courses will have a profound effect on the quality of physics graduates and future physics curricula.